A Distributed Testbed for National Information Provisioning

9521745 Claffy General Atomics proposes in collaboration with Digital Equipment Corporation as a partner on this project, to develop and deploy a scalable caching and replication system across strategic network locations within the United States. Digital Equipment Corporation has committed to significant cost sharing and collaboration, as an integral part of this proposal. Our goal is to facilitate the evolution of U.S. information provisioning with an efficient national architecture for handling highly popular information. Our proposed effort is unique in tying together research and infrastructure. The research and deployment experience of the principal investigators and their proximity to NSF backbone sites will leverage existing NSF-sponsored activities, at the supercomputer centers as well as activities related to resource discovery at the University of Colorado in Boulder.